Spectral Invariants in Geometry and Topology

9704633 Lott This project is concerned with relationships between geometric analysis and the topology of manifolds. Among the topics to be pursued are: L2-invariants of covering spaces and their possible extensions; p-form eigenvalues of collapsing Riemannian manifolds and about topological obstructions to collapse; analytic torsion forms and the topology of diffeomorphism groups. Manifolds are curved spaces generalizing surfaces in space. Thus an important geometric property of a manifold is its curvature, which is defined locally. It turns out that there are restrictions on the overall shape of the manifold, i.e., its topology, for the manifold to be able to carry certain types of curvatures; conversely, knowing the curvature one can make certain predictions about its global shape.